Technology Leaders Scholarship Program

This grant permits the continuation of the Technology Leaders Scholarship Program
at Youngstown State University. The program makes available $3,125 per year over a four-
year period for up to 29 undergraduate and graduate students. The relative number of
scholarships to be distributed at each degree level is approximately 25% A.S., 60% B.S., and
15% M.S, although flexibility is built into the program with a minimum recruitment goal in
each area. The scholarships are disbursed to students majoring in computer science,
mathematics, and engineering, with the ratio of disbursement reflecting the relative population
of students currently in those disciplines. Entering students are required to have a minimum
ACT score of 23 or be in the top 20% of their academic class. Continuing students are
required to maintain at least a 3.0/4.0 GPA. Recruitment efforts are focused on the local
service area of YSU, with particular emphasis placed on recruitment of minority populations
and women. Retention of students through completion of their degree is to be achieved
through careful selection of candidates, student/student and student/faculty mentoring,
tracking, career guidance, and selecting programming aimed at keeping each student
focused and maintaining their interest.